Testing Based on Hybrid System Models

Lee, Insup
CCR-0209024

Many embedded systems are part of safety-critical applications, e.g.,
avionics systems, manufacturing, automotive controllers, and medical
devices. The safety-critical nature of embedded applications requires a higher
level of robustness and reliability than is called for in conventional
software systems development. In the attempt to insure a higher level of
confidence in the design and implementation, current practice merely
increases the duration, frequency, scope, etc. of traditional
verification practices. The net result is substantially higher
development costs and longer design cycles, leading to a design cycle
where a verification bottleneck is impacting overall operational
effectiveness, efficiency and safety.

This project seeks to mitigate the verification bottleneck by identifying
appropriate specification formalisms, and using those formalisms as a
basis to develop fully automated techniques for verifying
implementations using testing. An important distinguishing
characteristic of the embedded applications listed earlier is the
hybrid (discrete and continuous)nature of behaviors. The continuous
components of embedded systems, and the large state
spaces of all industrially relevant systems, make verification
techniques based on exhaustive exploration of the state space
intractable. Therefore, it is necessary to approach the verification
problem with techniques based on sampling, i.e., testing. This requires
abstracting the original system state space to
create a condensed state space that can be explored to determine
valuable points to sample. Methods of abstraction, methods for
selecting test points, and methods for evaluating the relative merit
of one set of test points vs. another are all issues addressed by this
work. The research also explores the use of traditional
notions of test coverage applied to formal specifications of hybrid
systems. Test suites are generated using the counterexample or
witness generation techniques of model checkers as well as random path
generations.

The practical issues of demonstrating the working techniques, and the
efficacy of these techniques when applied to realistic systems, are
addressed through the implementation of tools that automate all
steps of the process: abstraction, test selection, test derivation,
test application to concrete implementations, and the evaluation of
test results. Tools are developed on top of the existing
CHARON framework for creating hybrid system models.
Case-study work based on real system specifications and
benefit from interaction with practicing engineers working for Honeywell, a
leader in the development of advanced avionics systems. One issue is how
to integrate the techniques into development processes that conform
to the DO-178B avionics certification process.
Among the broader impacts that are anticipated from this work are (1)
an increase in awareness of and actual use of formal methods by
practicing developers, and (2) an acceleration of the safety-critical
embedded system development process that will enable the creation of
safer, more reliable systems with shorter development cycle times.